Travel: NSF Student Travel Grant for 2026 ACM International Conference on Architectural Support for Programming Languages and Operating Systems (ASPLOS)

The 31st ACM International Conference on Architectural Support for Programming Languages and Operating Systems (ASPLOS), sponsored by the Association for Computing Machinery (ACM), to be held Pittsburgh, USA, from the 22nd to the 26th of March 2026. ASPLOS is a leading forum for multidisciplinary systems research spanning computer architecture and hardware, programming languages and compilers, and operating systems. It involves participants (researchers, developers, students, and practitioners) from academia, industry, laboratories, and commerce coming together to discuss recent advances and trends.

ASPLOS seeks to increase student participation in the conference and the field. The funding will support student travel and the recipients will be able to attend the main conference, workshops, and tutorials. Travel grants will encourage the research interests and the involvement of students in the field who are not well funded and those who are just beginning their participation in the field or are interested in entering it.